Travel Support for US Participants in the International Symposium on Brittle Matrix Composites, Warsaw, Poland

9318848 Li The project consists on providing financial assistance for 5 leading American specialists in the mechanics and technology of brittle matrix composites for their participation at the next International Brittle Matrix Composites (BMC) Symposium in Poland, September 13-15, 1994. The participation of a representative group of American specialists will considerably enhance the role of the Symposium BMC, and stimulate international cooperation. It will also benefit the American research community in keeping abreast of European research and development in ceramic and cementitious composites, and their manufacturing and industrial applications. Research reports coming from the European community (EC) joint projects such as those supported under the BRITE and EUREKA programs, will be presented.